RAPID: Is Biomass Mobilization at Ice-covered Lake Fryxell, Antarctica reaching a Critical Threshold?

Perennially ice-covered lakes in the McMurdo Dry Valleys of Antarctica contain abundant microbial mats, and the export of this mat material can fertilize the surrounding polar desert ecosystems. These desert soils are one of the most organic-poor on earth yet host a community of microorganisms. Microbial mat material is exported from the shallow, gas-supersaturated regions of the lakes when gas bubbles form in the mats, lifting them to the ice cover; the perennial ice cover maintains gas supersaturation. These mats freeze in and are exported to the surrounding soils through ice ablation. The largest seasonal decrease and thinnest ice cover in the history of Lake Fryxell was recorded during the 2022-2023 Austral summer. In this thin ice year, the water column dissolved oxygen increased over prior observations, and the lake bottom surface area with bubble-disrupted mat was more than double that observed in 1980-1981 and 2006-2007. This work will constrain mat mobilization within and out of Lake Fryxell in the McMurdo Dry Valleys during a period of unprecedented ice thinning to understand how future changing regional climate and predicted seasonal loss of lake ice cover will affect nutrient transport in the McMurdo Dry Valleys. Exceptional years of mat export are hypothesized to have the most significant impact on nutrient export to soil communities; variability in mat liftoff may thus play a role in the McMurdo Dry Valleys ecosystem response to changing climate.

The perennial ice cover of lakes in the McMurdo Dry Valleys of Antarctica modulates the transfer of gasses, organic and inorganic material, between the lakes and surrounding soils. The export of biomass in these lakes is driven by the supersaturation of atmospheric gasses in the shallow regions under perennial ice cover. Gas bubbles nucleate in the mats, producing buoyancy that lifts them to the bottom of the ice, where they freeze in and are exported to the surrounding soils through ice ablation. These mats represent a significant source of biomass and nutrients to the McMurdo Dry Valleys soils, which are among the most organic-poor on earth. Nevertheless, this biomass remains unaccounted for in organic carbon cycling models for the McMurdo Dry Valleys. Ice cover data from the McMurdo Dry Valleys Long Term Ecological Research Project shows that the ice thickness has undergone cyclical variation over the last 40 years, reaching the largest seasonal decrease and thinnest ice-cover in the recorded history of Lake Fryxell during the 2022-2023 austral summer. Preliminary work shows that the surface area with mat liftoff at Lake Fryxell is more than double that observed in 1980-1981 and 2006-2007, coinciding with this unprecedented thinning of the ice-cover and an increase in the water column dissolved O2. This research will constrain biomass mobilization within and out of Lake Fryxell in the McMurdo Dry Valleys during a period of unprecedented ice thinning. The researchers hypothesize that a thinner ice cover promotes more biomass mobilization by 1) stimulating additional production of gas bubbles from the existing gas-supersaturated waters during summertime photosynthesis to create microbial mat liftoff and 2) promoting mat liftoff in deeper, thicker microbial mats, and 3) that this biomass can be traced into the soils by characterizing its chemistry and modeling the most likely depositional settings. This work will use microbial mat samples, lake dissolved oxygen and photosynthetically active radiation data and underwater drone footage documenting the depth distribution of liftoff mats in January 2023, and long-term ice cover thickness, photosynthetically active radiation, and lake level change data collected by the McMurdo Dry Valleys Long Term Ecological Research Project to test hypotheses 1-3. The dispersal of the liftoff mat exposed at Lake Fryxell surface will be modeled using a Hybrid Single-Particle Lagrangian Integrated Trajectory (HYSPLIT) model. Exceptional liftoff years like the present are hypothesized to have the most significant impact on the soil communities as the rates of soil respiration increase with the addition of carbon. However, continued warming in the next 10 - 40 years may result in seasonal loss of the ice cover and cessation of liftoff mat export.